BAC: Perceptual and Motor Control Mechanisms in Visual Tracking

This research project will examine and model the way in which normal human subjects visually track continuously moving targets. The way in which the smooth pursuit and saccadic eye movement systems interact with each other to maintain fixation on the target and reacquire it when imperfect tracking causes the image to move off the fovea will be studied. In addition, the way in which subjects develop an internal representation of repetitive target motion, which they then use to predict the target's trajectory, will be investigated. The model developed by this research will be useful in explaining the control of biological systems and also in developing a biologically- based active vision system.